RI: Robot Manipulation Under Uncertainty

The long-term goal of this project is to enable robot manipulation
in the unstructured and uncertain environments of the home and the workplace.
To operate robustly and effectively when there is uncertainty, a robot
must be able to reason explicitly about how uncertain it is, and
potentially choose actions that will yield sensory information that
will reduce the uncertainty. This project addresses the problem of
reasoning about uncertainty by using a probability distribution over
possible underlying states of the world to represent its current
``belief'', and by choosing actions in virtue of the effects they will
have on the robot's belief about the state of the world. Robot
manipulation problems will be formulated as partially observable
Markov decision processes (POMDPs) to generate effective strategies
for manipulation under uncertainty.